Multi-proxy Reconstruction of Past Changes in the Eastern Equatorial Pacific Ocean

The tropical Pacific Ocean acts as the heat engine of our planet. In this region, continuous interactions between the ocean and atmosphere lead to alternating patterns of rainfall, wind, and temperature. These variations are known as El Niño-Southern Oscillation, or “ENSO.” ENSO cycles have global impacts beyond the tropical Pacific Ocean, influencing weather patterns, agriculture, water resources, and hurricanes. The controls on the frequency and strength of ENSO are not fully understood. This project will use sediment cores from the eastern equatorial Pacific Ocean to explore ENSO variation through Earth’s history. ENSO variations will be compared to the predictable variations in sunlight caused by changes in the shape of Earth’s orbit. The project will provide research opportunities and student training at multiple levels. In partnership with a team of science educators, the researchers will host workshops for middle- and high-school science teachers to increase public awareness of ENSO.

An east-west transect of four legacy ocean drilling sites along the equator from near Central America to well west of the Galapagos will be studied across multiple glaciation cycles using a combination of uranium-series radiochemistry of bulk sediments and stable isotope geochemistry of planktonic foraminifera. The data will be generated at approximately 3 kiloyear temporal resolution, to test hypotheses regarding the influence of the 20 kiloyear variations in orbital precession on the tropical Pacific. Uranium-series isotopes will be analyzed by inductively coupled plasma mass spectrometry (ICP-MS) and foraminifera stable isotopes will be analyzed by gas-source isotope ratio mass spectrometry (IRMS). The data will be examined for evidence of changes in ENSO behavior generally, as well as near-surface productivity, wind-driven upwelling and dust deposition, deep ocean oxygenation and the depth of the thermocline. It will be used to test hypotheses regarding the influence of uniform heating on zonal asymmetry across the tropical Pacific Ocean and the effect of this asymmetry on surface productivity and deep carbon storage.